Acquisition of a 300 MHz NMR Spectrometer

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Creighton University acquire a 300 MHz NMR Spectrometer with variable temperature control and broad-band detection capabilities. The research activity to be supported includes: (1) extended conjugate addition chemistry; (2) Structural/conformational studies of ring-expanded nucleosides; (3) Si-Csp interactions in silylalkynes; (4) The reactivity of S2 with organometallic complexes; (5) Mechanism-based inactivation of phospholipase A2; (6) Synthesis of calcitonin gene-related peptide, (7) Synthesis of bicyclic octahydroisoquinolines as thromboxane A2 antagonists, and (8) Synthesis od saturated and bicyclic dopamine receptor ligands. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.